Finger Lakes Probability Seminar

The Finger Lakes Probability Seminar grant will cover the years 2017-2020, according to the following schedule:

April 21-22, 2017 at Syracuse University
April 20-21, 2018 at University of Rochester
April 19-20, 2019 at Cornell University
April 17-18, 2020 at SUNY Binghamton

For additional information see the conference website: http://web.math.rochester.edu/people/faculty/cmlr/Finger-Lakes/.

The conference is aimed at professors, graduate students, and advanced undergraduates. Its purpose is to facilitate communication between the probabilists near the Finger Lakes in Upstate New York, as well as to introduce graduate students and advanced undergraduates to the latest developments. Probability is a rapidly developing area with many applications, and it is hard to be aware of all developments in the field. In past years professors and graduate students from more distant locations such as Toronto, Boston, and New York City have also attended.